Models of Strategic Thinking: A Theoretical, Experimental and Statistical Study

9308914 Stahl The purpose of this proposed research is to develop alternative theories of strategic thinking, design experiments to test the theories, and statistically analyze the experimental data to answer the following questions: - Is it possible to detect different modes of strategic thinking in an apparently homogeneous population of experimental subjects, thereby rejecting the hypothesis of a common mode of strategic thinking? - Assuming that no experimental subject is precisely one of the theoretical types, how much diversity within each categorical type is due to (a) small variations in priors and (b) computational errors by subjects? - If subjects are given aggregate information about the past choices of the population, how will the various types incorporate that information? The results of this research should make important contributions to our understanding of individual strategic decision making and multi-decision-maker problems. ***